Factors Regulating Programmed Cell Death in an Insect

9729581 BOOKER During development of an organism, more cells are formed than are needed for the final body plan. This excess cell formation is particularly noteworthy in the nervous system, where individual cells have unique roles. Programmed cell death (PCD) plays a central role in the elimination of excess cells and in sculpting developing systems. The goal of this project is to improve our understanding of the cellular mechanisms underlying PCD, using the central nervous system of the moth Manduca sexta as a model system. Programmed cell death is a common feature of Manduca's postembryonic development. During the larval stage, thousands of adult-specific neurons are added to the ganglia of the central nervous system, and throughout this period of cell addition, cell death is also observed. In addition, the transition between the larval and adult stages is characterized by the death of obsolete larval muscles and neurons that are not required by the adult. Previous research has shown that the pattern of cell death observed in Manduca depends on such things as the cell's lineage, segmental identity, and time of birth. This complex pattern of cell death most likely results from differences in the mechanisms underlying PCD in different cells. Dr. Booker will carry out a series of experiments that are designed to investigate these mechanisms. A series of endocrine manipulations will be used to determine whether the steroid hormone ecdysone plays a role in regulating the neuronal PCD observed in the larval stage, and after the onset of metamorphosis. During postembryonic development, the level of cell death is higher in the abdominal compared to the thoracic ganglia. To learn more about the role of segmental identity in the regulation of PCD, a moth homeotic mutant, in which one thoracic segment is duplicated, will be examined to determine if its pattern of cell death is altered. A biochemical characterization of PCD within the nervous system will be done using a series of specific inhibitors of the ubiquitin-dependent proteolytic pathway, because preliminary evidence suggests that this pathway plays a key role in PCD in the moth. Dr. Booker's group has found that application of potent inhibitors of the ubiquitin-dependent pathway can selectively block the PCD of muscles in the developing moth. This finding will allow them to directly test which cell types, at which developmental stages, utilize this mechanism of PCD. The results obtained from this series of experiments will improve our understanding of the biochemical mechanisms involved in PCD, and how PCD can selectively occur in different cell types at different times.